Estimation of Large Consumer Demand Systems

Arthur Lewbel Brandeis University SBR-9514977 The research will attempt to solve many of the problems associated with estimating consumer demand. Included in the research will be an attempt to separate out the effect of changing prices when most prices move in parallel, a refinement for combining information from national consumption trends with information for some years on individuals' consumption, better methods for estimating expenditures on individual goods, particularly when some goods are bought infrequently (i.e. automobiles), and modeling of intrahousehold consumption decisions and behaviors. Sophisticated econometric techniques will be used in this research.